Undergraduate Faculty Workshops in Computer Graphics and Software Engineering

There has been a rapid growth in undergraduate computer science departments in the past few years, without sufficient growth in Ph.D.s in Computer Science to staff these positions. This means that in many institutions the bulk of the computer science faculty have their degrees in other fields and are self taught in computer science. This problem is compounded in undergraduate or teaching - oriented institutions where the faculty are expected to teach in several areas and have difficulty in keeping up with the rapid progress in computer science. To enhance the quality of the undergraduate programs in computer science, retraining and revitalization of the faculty is necessary. Along with the retraining of the faculty, there is a need for the development of new curriculum materials for use in the undergraduate courses. In this project for 48 undergraduate faculty, curriculum materials are being developed and workshops are being held for undergraduate faculty in two areas: Software Engineering and Computer Graphics. These two areas were chosen because of their increasing importance and because they are both areas where recent hardware and software developments have significantly changed what can be offered at the undergraduate level. The home institutions of the participants are contributing the travel costs and Georgia State University is contributing an additional $33,000 in support of the project.